Multidisciplinary Center for Earthquake Engineering Research (MCEER)

9701471 Lee The Center for Advanced Technologies in Earthquake Loss- Reduction (ATEL) is a nine-institution consortium, closely linked under an integrated research and management framework using modern communication networks. The thrust of this center will be the development and application of advanced and emerging technologies for design, construction, and intelligent engineering renewal of buildings and civil infrastructure in reducing earthquake losses. An integral part of the research is associated with loss-reduction: removal of socio-economic barriers; and development of incentives for new knowledge and technology. This EERC will carry out an integrated research, education and outreach program that will be built on three major elements: (a) performance assessment of the built environment; (b) rehabilitation of critical facilities; and (c) response and recovery using new loss estimation methodologies and advanced technologies. The technological foci of the research are: high-performance computing; site remediation; structural control and monitoring; smart and high- performance materials; condition assessment; robotics systems; and decision-making systems. A comprehensive education plan for graduate and undergraduate students, K- 12, professionals and the public sector is integrated with the research plan and is supported by two user networks focused upon: (a) advanced computation; and (b) experimental facilities. An innovative outreach program will be implemented to promote and develop: public awareness; professional training and re-education; and partnerships for knowledge/technology transfer and utilization. The Center for ATEL is one of three EERC's networked with an overarching governing board to provide synergism in creating new knowledge and technology, educating the next generation of earthquake engineers and scientists, and providing outreach to industry, government, pre-college schools and potential user groups.